Acquisition of an Ultra-Sensitive Mass Spectrometer for the University of Wisconsin Rare Gas Geochronology Laboratory

9972851
Singer

This grant provides partial support for the acquisition of a noble gas mass spectrometer, CO2 laser and associated equipment for gas extraction and purification for geochronological and petrologic research at the University of Wisconsin, Department of Geological Sciences. This facility, under the direction of Dr. Bradley Singer, would primarily be restricted to the measurement of isotopes of Argon to date relatively young (Quaternary) volcanics but the applications of the technique are broad and valuable for constraining the timing of tectonic events, geomagnetic field reversals and weathering processes. Dr. Singer's diverse research plans include studies of the dynamics and timing of explosive arc volcanism (i.e. Mt. Vesuvius, Aleutian Islands), constraining the timing of Pliocene to Holocene geomagnetic field reversals, determining the timing of Quaternary glacial events in the Southern Hemisphere, and documenting the history of basin development recorded in the oil shale bearing Green River Formation, all of which will gain from the availability of an in-house facility for high precision Ar/Ar geochronology.

***